Cruise to the Okhotsk Sea

Funds are provided for a joint US, Canada, Russia cruise to the Sea of Okhotsk. The largely inland Sea is believed to be an important source of North Pacific Intermediate Water. Suitable suite cores and water profile samples will be collected to test the hypothesis of ocean circulation and climate change beyond the last glacial maximum. The cruise will be undertaken on the Russian vessel R?V Lavrentiev with contributions from US and Canadian PI's.